Distributed Concurrent Hypertext for Multireader CooperativeSystems

Furuta This research is funded under the Special Initiative on Coordination Theory and Collaboration Technology. This is one of eleven winners under that competition. This project is to develop a system that allows rapid prototyping and evaluation of collaboration support structures. It operates in the context of a data browsing and information system based on the Trellis model of hypertext. Trellis uses a formally defined concurrent process model (nets) to implement hypertext. This approach provides parallel automation semantics on tip of the features of the commonly used annotated directed graph. A Trellis document has a well defined and analyzable formal structure, and the concurrency aspects of nets give Trellis the capability of managing groups of interactive agents within the structure of a linked document. Trellis documents not only represent relations among information elements, but also serve as the basis for construction of high- level cooperative process descriptions in which the agents of computation are coarse grained and of moderate speed and number. This corresponds to groups of people interacting cooperatively on the solution of a problem involving the browsing and manipulation of information. This project integrates collaboration support methods into hypertext documents and browsing. The unique features and capabilities of the Trellis hypertext model, coupled with the proposed formal extensions and analysis techniques, make this not only technically feasible, but especially appropriate and succinct.